Distribution and Dynamic Behavior of Adsorbed Species in Microporous Solids

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Cynthia Jameson will study the dynamics of gases interacting with zeolites using 129Xe NMR spectroscopy, ab initio calculations of chemical shifts, and computer simulations. The project will look at elementary processes at surfaces, such as adsorption and diffusion, in order to gain a microscopic understanding of the sometimes complicated surface chemistry. The current effort will extend both simulations and experiments to more complex systems. %%% Microporous solids, such as zeolites, are widely used for a large number of applications, including heterogeneous catalysis, separations, oil recovery, and other industrial processes. Industrial processes which involve adsorption from gas streams with multiple components depend on the separation of these components through competitive adsorption on the catalytic surfaces. The results of this research project will aid in understanding these sorts of applied systems.